Surface Changes During Unlubricated Sliding of Steel Under Severe Contact Pressure

This tribology research investigates the physical, chemical, and microstructural changes which occur during sliding of unlubricated steel surfaces under contact pressures high enough to cause adhesion. Specimens will be pressed against each other and then rotated to simulate the environment that a bolted joint experiences. The experiment is intended to provide insight into the failure mechanisms associated with bolted joints.